Quantum Unique Ergodicity and Rigidity in Dynamical Systems

PI: Lindenstrauss
Proposal Number: 0140497

ABSTRACT

Quantum Unique Ergodicity and Rigidity in Dynamical Systems

The research proposed lies at the interface of dynamical
systems and several other mathematical disciplines, and
in particular number theory and the mathematical theory
of Quantum Chaos. It is well known that the collections
of invariant probability measures and closed invariant
sets for hyperbolic maps or flows is very large; remarkably,
in many dynamical systems of algebraic origin where there
are two (or more) commuting hyperbolic maps or flows it is
conjectured that there are actually very few measures or
closed sets invariant under this bigger action. Despite (or
perhaps because of) important contributions by several
authors, the mystery of this rigidity property of
multidimensional actions is still one of the central problems
in modern ergodic theory.While seemingly unrelated, the
methodology of the study of rigidity of multiparameter actions
is very suitable to study the arithmetical case of the Quantum
Unique Ergodicity Conjecture, regarding the limit of the
spatial distribution of a free particle on certain manifolds
in a quantum steady state as the energy of the state tends to
infinity (the semiclassical limit). This question has been
considered previously by many authors mostly using tools from
analytic number theory; the approach proposed, using the
dynamical approach, is new and has already borne fruits.

The theory of dynamical systems gives tools to study complex
systems, for example the evolution of a complicated deterministic
process over time. There is a rich and distinguished tradition
of using these powerful tools in other mathematical disciplines,
most notably in number theory and combinatorics. The research
proposed is connected to several of the most exciting possible
applications, including new implications to the theory of
quantum chaos in mathematical physics.